Assessment of Feeding Habits in Crab Larvae Using the Polymerase Chain Reaction

9401936 DITTEL A fundamental, yet unresolved, question in Biological Oceanography concerns the feeding habits and trophic dynamics of zooplankton. In addition, the importance of understanding the ecological role of meroplankton in marine ecosystems has generated considerable interest in larval nutrition. Most studies concerning feeding behavior of larval forms have dealt with crustaceans, particularly decapod larvae. It is well known that larvae require animal food to complete development, but there is some indication that phytoplankton is also utilized. However, most studies have been based on laboratory experiments using prey such as Artemia salina nauplii and rotifers. The most common method used to assess the natural diet of marine organisms has been gut content analyses. However, this method has several drawbacks. For example, gut content analysis is of limited use, particularly in crustaceans, due to the difficulty of identifying crushed prey items. This project will use a new method, the polymerase chain reaction (PCR), to study the feeding habits of crab larvae under natural conditions. This project will examine whether PCR can be used successfully to assess the diet of crab larvae. If successful further research concerning food preferences using potential prey items from the natural environment will also be examined. ***